Hydrocarbon Surface Reactions Over Transition Metals

This work seeks to develop a quantitative understanding of the variables that influence the activity and selectivity of the reactions of hydrocarbons over supported metals. The work is relevant both to the catalytic production of hydrocarbons (including synfuels) and to the activation of hydrocarbons and their conversion into more complex products for use as industrial feedstocks, fuels, or other end uses. Simple hydrocarbons are studied over supported metals having different physical morphologies in the presence and absence of coadsorbed species. The adsorbed hydrocarbon species are characterized using transmission infrared spectroscopy and the rates of transformation into more stable surface species are monitored using in situ infrared techniques. Attempts are made to measure the rates of carbon-hydrogen and of carbon-carbon bond scission and to quantify the effects of particle size and morphology on the concentration and inherent reactivity of adsorbed hydrocarbon fragments. The study emphasizes the behavior of two-carbon hydrocarbons (ethane, ethylene, and acetylene) on crystallites of nickel or platinum supported on alumina or silica.